Development of an Online Database Cataloging and QuantifyingCollections of Microbial and Subcellular Germplasm Utilized in Plant-related Research

This award supports the development of a computerized database and network of the microbial germplasm collections, "the Microbial Germplasm Database", that are utilized in research related to plant biology. The Microbial Germplasm Database will contain information concerning living culture collections of plant associated microbes and viruses, that are located all over the world. These collections are valuable resources for the research community, however, are not efficiently utilized because they are not catalogued or quantified for easy access. The Microbial Germplasm Database will provide the research community with a centralized information center where all plant-associated microbes collections will be described with an easy on-line access. This database will be linked to other databases of similar nature, such as the World Data Center at Riken, Japan.